Presidential Young Investigator Award

The proposed research expands current work at the grain scale on eolian sediment transport into the multiple grainsize realm and into the Martian and snow systems. The PI will explore mountain scale evolution due to growth by characteristic earthquakes, and decay by a suite of realistic geomorphic processes acting at smaller scales.